The High Pressure Structure of Silicate Liquids: Constraints on the Chemical and Physical Properties of Deep Earth Melts

This project involves collecting information on the structure and electrical transport properties of silicates-analogue liquids at high pressures and temperatures and on the structures of glasses formed at high pressures and temperatures and quenched only in temperature. The primary structural probes are vibrational spectroscopy: principally Raman spectroscopy for the liquids, and infrared spectroscopy or quenched glasses held in situ at high pressures. The plan is to utilize the externally heated diamond cell to generate pressure and temperature for both spectroscopic and conductivity experiments on liquids, and laser heating coupled with the diamond anvil cell to form high pressure glasses. Such data are critically important in predicting and evaluating changes in the physical properties, such as density and viscosity, of magmatic liquids under compression, and bear fundamentally on the processes by which the Earth has differentiated to its present state. The goals is to provide a structural basis for changes in the geochemical, thermodynamics, and transport properties of silicate melts at high pressures. These experiments have been rendered feasible by recent advancements in both the generation and calibration of high pressures and temperatures within the diamond anvil cell, as well as advances in solid-state detector technology.